Path of Carbon in Photosynthesis and Release of Glycerol by Zooxanthellae: A Proposal for a Joint Project with a Russian Colleague

This project represents a joint research program between the Dr. Len Muscatine of UCLA and Dr. Karl Va. Bil', Head of the Photobiotechnology Department, Institute of Soil Science and Photosynthesis, Russian Academy of Science. The research will determine the path of carbon flow produced in photosynthesis of symbiotic dinoflagellates (known as, zooxanthellae) in sea anemones and corals and how this pathway is altered by a host factor which induces the algal cells to release glycerol. Host factor is now obtained in pure form in Muscatine's laboratory. The path of carbon will initially be determined in zooxanthellae in vitro using classical C-14 labeling and short-term photosynthesis techniques of Calvin and Benson. In companion experiments, the researchers will concurrently introduce cnidarian host factor and attempt to detect changes in the pathway which it induces. From the data obtained, including analysis of key enzyme activities, a testable hypothesis on the mechanism of action of host factor on the reductive pentose phosphate pathway and glycerol synthesis will be formulated and tested.